I-Corps: Local Ladybugs: An Effective, Environmentally Sound Pest Management Alternative

The proposed I-Corps project will explore the commercial feasibility of raising and selling native lady beetles (also known as ladybugs and ladybird beetles) to provide an alternative tool for gardeners and farmers to control the insect pests that eat their plants. Lady
beetles are one of the main groups of insects that can control these pests. Currently, farmers and gardeners purchase live lady beetles which have been collected from mountains in California. Over 3 billion beetles are sold annually for approximately $3 million and increasing concerns about pesticides and the rapid growth of the organic agriculture sector are expected to make biological controls increasingly attractive. There are several reasons why a new product could successfully break into the lady beetle portion of the biological control market including; 1)released convergent lady beetles fly away and do not control pests, 2)convergent lady beetles collected from one small area in California might spread disease across the country [the spread of disease is a leading theory of why
honey bees declined], and 3)drought in California which is driving availability down and price up. Clearly this market is ripe for an
alternative that actually performs. The alternative lady beetles this team will supply will be more effective (as locally adapted beetles
have consistently proven to be)and they are formerly common native species that have recently become rare and are in dire need of conservation.

The proposed approach will be to produce laboratory-reared native lady beetles as an alternative field-collected beetles or pesticides for the suppression of insect pests. It has been generally accepted for some time that the currently available lady beetles are ineffective and had potentially necgative environmental consequences but attempts to make alternative species available through rearing (as opposed to collecting) have failed. With the proposed rearing technique, the team expects to produce beetles that would far outperform the currently sold product in terms of pest suppression, without the potential for negative environmental impacts, and could reasonably expect to command a premium for these incremental benefits. The team currently produces 100's of beetles per week and has the capacity to potentially produce 10s of 1000s per week. The greater efficacy, availability and positive environmental impact should lead many current and new consumers to the proposeded product. Environmentally concerned farmers and gardeners have already contacted the Lost Ladybug Project (a citizen science project with thousands of participants across the country) in search of sources of alternatives to the convergent lady beetle. In addition, large land-owners with interests in lady beetle diversity and conservation have contacted the team wishing to release threatened natives on their land indicating the potential for a "green lady beetle" market in addition to the pest suppression.